Mechanism(s) of Plant Response to Suboptimal and Adverse Irradiance

Irradiance stress directly affects the structure of the photosystems in plant chloroplasts. These adjustments apparently help optimize photosynthesis and allow the plant to retain efficient growth under suboptimal and/or adverse irradiance conditions. The overall goal of this research is to understand the fundamental mechanism of plant response to suboptimal and adverse irradiance. Components of thylakoid membranes which are found in chloroplasts will be studied. Specific goals of this proposal are to identify the primary receptor of the signal (irradiance stress) and elucidate the first step in the signal transduction and transformation process leading to a plant response. Experimental methodologies and approaches to be employed include absorbance difference spectrophotometry, gel electrophoresis and immunoblot (western) analysis, radioactive labelling and autoradiography, and DNA-RNA hybridization (northern analysis). This research addresses a novel idea, namely that photosynthetic pigments act in the primary step of adverse irradiance recognition and that signal transduction is mediated by electron transport reactions in the thylakoid membrane. There is preliminary evidence to suggest that such a molecular feedback control mechanism guides plant response to irradiance stress and this proposal will examine this mechanism. Results from this research will improve our understanding of the mechanisms by which photosynthetic plants perceive and adapt to irradiance stress including ultraviolet radiation (UV-B). This will have implications for predicting plant response to potential increases in UV-B that may result from depletion of stratospheric ozone in the atmosphere.